Recent Developments in Differential Equations and EcologicalModeling

Thirty college mathematics faculty are exploring differential equations as they are applied to a variety of different topics, with an emphasis on mathematical modeling in ecology. During the three week workshop selected fundamental topics from differential equations will be discussed and it will be shown how these topics can be useful in contemporary mathematical modeling problems, particularly problems in population dynamics including those factors which lead to the extinction or survival of endangered species. The emphasis will be on basic new theoretical results and their uses as well as mathematical modeling techniques. Participants will submit reports indicating how these ideas were incorporated into, or affected, their courses or their research during the following year and reports will be distributed to all participants.